Electron Correlations and Properties of Metals and Insulators

This group will continue and expand their work in the specific areas of dynamical phenomena at surfaces, non-uniform electronic systems, high energy excitations in solids, and strongly correlated systems and high temperature superconductivity.